Mixed-Model Fault Diagnosis

This research is an investigation of model-independent fault diagnosis
systems that are intended to be robust, comprehensive, extendible, and
practical. The approach is to exploit the underlying probabilistic
framework of the system, which makes it possible to incorporate disparate
diagnostic algorithms, different sets of data, and a mixture of fault
models into a single diagnostic result. The use of heterogeneous fault
candidates will allow a diagnosis result that pinpoints problem areas based
on data gleaned from the results of logic tests, delay tests, and IDDQ
tests. The research results are being verified by testing them using actual
industrial IC failure data. Algorithms and software demonstrating the
research ideas are being developed.